2010 IEEE International Conference on Plasma Science-student travel support which will be held on June 20-24, 2010 in Norfolk, Virginia

This is a Conference Award. The grant will support student travel to participate in the 2010 IEEE International Conference on Plasma Science to be held in Norfolk Virginia (USA) June 20 - 24, 2010. A committee of senior faculty members will be selecting student recipients, based upon submitted applications.